New Methods in Stereoselective Synthesis

The focus of this research is the development of chiral carbosilanes as synthetic intermediates and the use of the methodology for the convergent, enantioselective synthesis of the C1-C9 segment of doliculide. Research devoted to the development of Si-based chiral Lewis acid catalysts will also be conducted. With this proposal, the Synthetic Organic Program is supporting the research of Dr. Amir H. Hoveyda of the Department of Chemistry at Boston College. Professor Hoveyda will focus his work on developing new synthetic methods, based upon the chemistry of silicon. The usefulness of the new reactions will be demonstrated by application to the synthesis of a portion of doliculide, a molecule which exhibits important biological properties.